ITR/AP(CISE): Capturing and Modeling Physics from Images

The objective of this project is to capture physical properties of real world phenomenon by analyzing photographs and video. The problem of capturing motion of objects has emerged as a major research area in the fields of computer vision and computer graphics with a wide range of possible applications. This project will attempt to devise new computer vision techniques for capturing and modeling the dynamics and physical characteristics of a number of differing objects in different contexts. If successful, the new techniques will enable more accurate 3D motion estimation from a single video stream and other limited sensor data. Finally, the project will explore potentially valuable application areas for these research products.